EAGER: Exploring Evidence-Based Techniques for Engineering Secure Software

The project performs empirical studies of code bases to characterize vulnerabilities that occur in practice on software projects. The studies will identify the vulnerability-causing commits to understand when security vulnerabilities are introduced and how long they are exposed. The empirical methodology for studying security vulnerabilities sets the stage for more rigorous and efficient empirical studies important for evaluating the efficacy of new software development methods aimed at design more security systems. The initial studies will look at Apache HTTPD service data. An additional objective of the research is to gather more information about how industrial projects collect and analyze the data needed for learning about security vulnerabilities in practice.